U.S. Participation in Underground Engineering Symposium, New Delhi, April 14-17, 1988, Group Travel Award in Indian and U.S. Currency

Description: This project supports participation by U.S. scientists in a symposium on underground engineering to be held in New Delhi. The topics will include construction of tunnels for hydro-electric power and their stability problems, and of facilities for high-level radioactive waste in underground repositories; rock burst problems in very deep underground excavations such as in Indian gold mines. The Indian coordinator of the symposium is Dr. A. K. Dube, Head, Geomechanics, Central Mining Research Station Unit, Central Building Research Institute, Roorkee, India. The U.S. participants will present papers on their research, and will visit Indian research facilities especially at the University of Roorkee and at the Kolar gold field mines to learn of research results and experiences. Scope: Indian scientists responsible for helping Indian industrial development have dealt with major structural problems in mining, hydro-electric power and nuclear waste disposal. They had to conduct research to deal with these problems. They, and the U.S. participants can exchange information on their experiences and possibly develop a viable program of collaboration in this area.